A Proposal to Support Students and Young Scientists in 2008 ACM SIGMOBILE and the USENIX Association Mobile Systems, Applications, and Services Conference

The proposal requests partial support for young researchers and students to participate in
2008 MobiSys Conference in Breckenridge, Colorado. The NSF support will provide
opportunities for up to twenty young participants to interact with established researchers.
The focus of the conference is on the design, implementation, usage, and evaluation of
mobile computing and wireless systems, applications, and services.

The broader impact of the proposal is fostering an environment of technical discussions
and debates among the communities of mobile computing and wireless systems. In
addition the conference is set out to encourage participation by young scientists and
researchers.